Conference: Organization of the 1995 Optical Computing Topical Meeting to be March 13-17, 1995 in Salt Lake City, Utah

9521197 Hennage The sixth OSA Topical Meeting on Optical Computing explores the applications of optics in computing, interconnections, and information processing with invited and contributed oral presentations and posters. Papers are solicited in all facets of optics in computing from materials, devices and components, to architectures, algorithms and applications. Germane topics include system demonstrations in digital optical computing, optical neural networks, and novel optical processing architectures, development of active and passive components, devices and materials, and progress in techniques and subsystems such as optical interconnections, optical memory, and optical logic. ***